SHF: Large: Collaborative Research: Unified Runtime for Supporting Hybrid Programming Models on Heterogeneous Architecture.

Most of the traditional High-End Computing (HEC) applications and
current petascale applications are written using the Message Passing
Interface (MPI) programming model. Some of these applications are run
in MPI+OpenMP mode. However, it can be very difficult to use MPI or
MPI+OpenMP and maintain performance for applications which demonstrate
irregular and dynamic communication patterns. The Partitioned Global
Address Space (PGAS) programming model presents a flexible way for
these applications to express parallelism. Accelerators introduce
additional programming models: CUDA, OpenCL or OpenACC. Thus, the
emerging heterogeneous architectures require support for various
hybrid programming models: MPI+OpenMP, MPI+PGAS, and MPI+PGAS+OpenMP
with extended APIs for multiple levels of parallelism. Unfortunately,
there is no unified runtime which delivers the best performance and
scalability for all of these hybrid programming models for a range of
applications on current and next-generation HEC systems. This leads
to the following broad challenge: "Can a unified runtime for hybrid
programming model be designed which can provide benefits that are
greater than the sum of its parts?"

A synergistic and comprehensive research plan, involving computer
scientists from The Ohio State University (OSU) and Ohio Supercomputer
Center (OSC) and computational scientists from the Texas Advanced
Computing Center (TACC) and San Diego Supercomputer Center (SDSC),
University of California San Diego (UCSD), is proposed to address the
above broad challenge with innovative solutions. The investigators
will specifically address the following challenges: 1) What are the
requirements and limitations of using hybrid programming models for a
set of petascale applications? 2) What features and mechanisms are
needed in a unified runtime? 3) How can the unified runtime and
associated extension to programming model APIs be designed and
implemented? 4) How can candidate petascale applications be
redesigned to take advantage of proposed unified runtime? and 5) What
kind of benefits (in terms of performance, scalability and
productivity) can be achieved by the proposed approach? The research
will be driven by a set of applications from established NSF
computational science researchers running large scale simulations on
Ranger and other systems at OSC, SDSC and OSU. The proposed designs
will be integrated into the open-source MVAPICH2 library. The
established national-scale training and outreach programs at TACC,
SDSC and OSC will be used to disseminate the results of this research.